Travel support for 24th Conference on Stochastic Processes and their Applications; June 16-20, 1997; Vina del Mar, Chile

9703901 Kurtz This award provides funds to partially support travel for U.S. participants at the Conference on Stochastic Processes and their Applications, an international meeting to be held in Vina del Mar, Chile. The conferences on Stochastic Processes and their Applications have become the principal annual international forum for researchers studying applied and theoretical problems in stochastic processes.